Photodynamics of Condensed Phase Rare Gas Halides: Condensed Phase Exciplex Lasers

Condensed phase exciplex lasers have recently been demonstrated by the PI in both solid and liquid phases. These lasers possess attractive properties such as wide spectral coverage from the vacuum ultraviolet to the far red, broad tunability and unprecedented energy densities (50 Kjoule/liter demonstrated). Halogen-doped rare gas crystals, liquids and high density fluids, constitute the simplest model systems for studies of reactive many-body dynamics. Photodissociation, diffusion, recombination and charge transfer dynamics are all amenable for rigorous scrutiny in these systems. The experimental studies are aimed at obtaining the fundamental photodynamical parameters pertinent to the design of condensed phase tunable UV and VUV lasers and the characterization of lasing properties on the promising candidates. The work will pursue (a) systems that may lead to the development of continuous and broadly tunable UV-VUV lasers, and (b) development of high temperature (up to room temperature) solid state, supercritical fluid lasers.